MRI: Acquisition of a VITUS/smart 3-D Body Scanner

0420791
Domina
The PI proposes to acquire a 3D body scanner and accompanying software. The instrumentation is to be used to support programs in the Apparel Merchandising and Design program at Central Michigan University. The research projects that the instrument will support are in the realm of better textile development and marketing.